SciTech Clubs For Girls

SciTech Clubs for Girls, a three year old program, aims to encourage continuing interest in science and mathematics among 9-14 year-old girls. It gives them an experience in building a hands-on science exhibit for display at SciTech, a hands-on science center. Based on recent research, this program strikes at four major forces that keep girls out of the pipeline to careers in mathematics and science. Mentors by female professionals, the girls learn the safe use of tools, a principle for science, confidence in building things, and the pride of building and exhibit for use by tens of thousands of visitors yearly. Recently SciTech received a $125,000 grant from Youth ALIVE| A National Initiative of the DeWitt Wallace-Reader's Digest Fund to continue the program for 3-years and to expand it. We will reach 20 clubs of girls each year from organizations that serve girls. The program will reach older and younger girls and their female leaders. We will also reach into the intercity of Chicago to serve more minority girls. Under the YouthALIVE| grant we will carefully evaluate results and begin to disseminate the program to other museums nationally.